PFI-TT: Rechargeable Battery Cell Testing with magnetic resonance imaging (MRI).

The broader impact/commercial potential of this PFI project are the development are to
advance battery technology through an unprecedented type of diagnostic. Batteries are at the heart of energy saving, energy efficiency, and energy resilience initiatives, and thus directly contribute to health and wellness, competitiveness, and national defense of the US. The participants (postdocs, graduate students) working on this project will be trained in both science and entrepreneurship, which will provide them with a unique preparation for their next career steps. The new tool, based on magnetic resonance imaging (MRI), will provide fast and nondestructive means of classifying, assessing, and validating battery cells, and thus provide manufacturers and users a means of determining changes in the inside workings of cells throughout the battery life. This new possibility will help save costs, improve safety of battery usage (e.g. in cell phones, cars, and airplanes), and leverage battery technology for next-generation applications.

The proposed project will develop a proof-of-concept methodology for a new diagnostic for batteries in a scalable version of the instrumentation and implementation. Safety and capacity are the two most important characteristics of advanced batteries, but battery testing is currently limited to techniques that do not provide sufficient detail to properly assess the correct operation of a device. The technique developed herein is based on magnetic resonance imaging (MRI), is fast, completely non-invasive and can be performed on batteries while they are being charged or discharged. This proposal aims to clear technological hurdles towards implementing the methodology on a small footprint low-field and low-cost MRI instrumentation, which is an important step towards commercialization. Furthermore, the technique will be optimized for speed, tuned with regard to repeatability and reproducibility and will be adjusted to provide specific battery fingerprints, which can be used to classify cells. As a result, a proof-of-concept implementation of the technology will be developed, and the work may result in industrial partnerships, intellectual property development, and technology spinout.